U.S.-Chile Collaborative Research: Gradient Theory of Phase Transitions with Inhomogeneous Potentials: Phantom Interfaces and High Energy Solutions

0405626
Kowalczyk

This U.S.-Chile award will provide support for Dr. Michal Kowalczyk, Kent State University, to collaborate with Drs. Patricio L. Felmer and Salome Martinez of the University of Chile in Santiago, Chile. The investigators will collaborate in the area of nonlinear partial differential equations that arise in the study of concentration phenomena. More specifically, they aim to study the existence of transition layers that collapse and disappear in the singular limit. They will establish asymptotic profiles. It is predicted that this scale will in general differ from the natural scale of the problem.